Regular Algebras

This award supports the research of Michaela Vancliff to work in
non-commutative algebra, with special emphasis on problems arising
from the theory of regular algebras and non-commutative algebraic
geometry. She is interested in the graded-module category viewed as
a geometric space, with certain graded modules playing the role of
geometric objects. The linear geometric modules (point modules, line
modules, etc) are parametrized by so-called linear schemes. Vancliff
plans to study how the structure and role of higher-dimensional linear
schemes generalize the structure and role of point schemes. She intends
to produce algebro-geometric techniques that allow the easy construction
of regular algebras of global dimension four that have finitely many
points and a one-parameter family of line modules; such techniques would
allow researchers in the field to easily create examples on which to
test their conjectures. An underlying theme of her research is to
classify the line schemes that arise for "generic" quadratic regular
algebras of global dimension four. Vancliff is also interested in
connections between this type of geometry and that of various
Poisson-geometric structures.

Systems of polynomial-style equations and their solutions play a
critical role in almost every scientific field, such as statistical
mechanics, elementary-particle physics, quantum mechanics, robotics,
crystallography, networking, etc. Often, the solutions cannot be found
by experimentation, and often they are not numbers but are functions
(e.g., differential operators or matrices), and so, in general, they do
not commute. The science of seeking methods that find all solutions to
any system of polynomial-style equations in non-commuting variables is
called non-commutative algebra. To find the solutions, the main idea is as
follows. One associates to such a system of equations a certain algebra;
one that encodes all the properties of the original equations. Associated
to this algebra are modules, and these encode all the properties of the
original solutions. Hence, in order to find all the solutions, one should
find all the modules for the associated algebra. In many of the
applications, the algebras that arise in this way tend to share certain
properties; they are called regular algebras and are the main focus of
Vancliff's projects. One of the goals of non-commutative algebraic geometry,
the subfield in which Vancliff works, is to use geometric techniques to
find certain modules (point modules, line modules, etc) of the regular
algebra, and then to use those modules to find the modules giving the
solutions to the original system of equations. Vancliff's underlying goal
is to improve on these geometric techniques and to understand better how
they relate to the structure of the category of modules.